Existing RC And RCM Buildings Subject To Wind And EarthquakeLoads: Prediction of Structural Response And Retrofit/ Repair Performance

This project will develop an anlytical numerical method to predict the response of existing reinforced concrete and reinforced concrete masonry buildings subjected to wind and/or earthquake forces. The method will be used to ascertain the safety of the buildings before and after repair or retrofit.